U.S.-Poland Joint Fund Research on Class IIS Restriction Enzymes

The primary objective of this U.S.-Poland cooperative research project between Dr. Anna Podhajska of The University of Gdansk and her counterpart, Dr. Waclaw Szybalski of the University of Wisconsin, is to study class IIS restriction enzymes with the intent of determining their physico-chemical properties and mode of action. Results may be useful in efforts to detect point mutations in complex genomes. Funds for the project are awarded through the Maria Sklodowska-Curie Joint Fund II, Warsaw, in accordance with established guidelines.